Symposium on Density Functional Theory and Applications --A Satellite Symposium of the 9th International Congress of Quantum Chemistry

The Theoretical and Computational Chemistry Program is supporting a Satellite Symposium on Density Functional Theory and Applications which will be held from June 3-9, 1997 on the campus of Duke University in Durham, North Carolina. It is to be followed immediately by the 9th International Congress of Quantum Chemistry in Atlanta, Georgia. Density Functional Theory has become a major theoretical method for electronic structure calculations of molecules and condensed matter. The symposium will bring together theoretical and computational chemists, physicists from around the world who are on the frontier of the development of the basic formalism and applications of density functional theory. It is anticipated that approximately 200 scientists will participate in this conference including 50 speakers. What is particularly significant for US Science is the large size of the symposium and the fact that it is going to be the first one accessible to a relatively large number of US graduate students and postdoctoral fellows. This symposium is organized by Prof. W. Yang of Duke University and Prof. M. Levy of Tulane.